SBIR Phase I: Extension of the VorCat Code to Two-Phase Particulate-Flow Applications

This Small Business Innovation Research Phase I project will develop innovative, grid-free, numerical models of two-phase, particulate, incompressible turbulent flows. The intent is to provide a high fidelity model for the simulation and analysis of numerous environmental and industrial flow applications wherein particulate motion is a critical feature. Among the potential benefits are more accurate and timely predictions of health hazards and abatement strategies for the late-time dynamics of toxic particulates or contaminant clouds arising from routine, accidental or purposeful chemical and biological releases. This work will be applicable to the dynamics of pollutants in the atmosphere, particulate flows in liquids, two-phase turbulent mixing and particulate dispersion, among others.
This revolutionary technology will expand its potential computational fluid dynamics (CFD) market share by extending its capabilities to treat complex flows which are of great importance to including: aircraft manufacturing, automobile manufacturing and power generation.